The Combinatorics of Macdonald Polynomials

The PI plans to work on three related projects involving the combinatorics
of Macdonald polynomials and the space of diagonal harmonics. The first
is an attempt
to build on recent joint work between Haiman, Loehr and the PI which gives a
combinatorial formula for type A nonsymmetric Macdonald polynomials.
The existence of this formula in the type A setting suggests that similar
formulas exist for other root systems; the discovery of such formulas
would open up the subject significantly, as very few explicit identities of
any kind have been discovered beyond the type A case. The second project
attempts to build on
the combinatorial formula for (type A) symmetric Macdonald polynomials,
which was discovered empirically by the PI and proved in subsequent joint
work
with Haiman and Loehr. The main open problem in this regard is to find
a combinatorial formula for the coefficients in the
Schur expansion; as a step in this direction
the PI describes a new conjectured formula for the special case of
augmented hook shapes.
The third project involves trying to prove a conjectured
formula for the monomial expansion of the
character of the space of diagonal harmonics, due to Haiman, Loehr, Remmel,
Ulyanov and the PI. This conjecture,
which led the PI to the empirical formula for symmetric
Macdonald polynomials mentioned above,
has a number of implications to enumerative combinatorics and
representation theory.

Orthogonal polynomials are families of polynomials which satisfy an
orthogonality condition, typically meaning that the integral of any
two different elements of the family,
against some given weight function, is zero.
The study of orthogonal polynomials is several centuries old,
and they have quite a number of applications throughout mathematics and
science.
Symmetric functions are polynomials in several variables which are
invariant under any permutation of the variables. They have a large number
of applications to several branches of mathematics such as representation
theory and
the roots of polynomial equations.
In 1988 Macdonald introduced a new family of orthogonal polynomials,
which depend on a set of variables X and two extra parameters q,t. They are
symmetric functions in the variables X, and
contain most useful symmetric functions as special cases.
They were immediately recognized as being important to several area of
mathematics
including combinatorics and special functions.
In 2000 Haiman proved they have a complicated interpretation in terms of
an advanced,
abstract and theoretical branch of
mathematics known as algebraic geometry.
Macdonald's construction is indirect however, and neither it nor
Haiman's interpretation
give a way of easily describing these polynomials.
Recently the PI discovered, and with Haiman and Loehr proved, a simple
combinatorial formula for Macdonald's polynomials. The PI is trying to
apply this result to answer some of the open questions surrounding them.
Macdonald and Cherednik now have a much more general construction which
contains almost all
previously studied symmetric functions and orthogonal polynomials as
special cases.
The PI, in collaboration with Haiman, is trying to extend the
simple combinatorial formula to this more general construction.